RUI: A Numerical Modeling Study of the Catalina Eddy

Several times a year, usually in the months from May to September, a mesoscale vortex called the "Catalina Eddy" interrupts the prevailing fair weather patterns of coastal southern California and imposes a dramatically different wind, cloud and temperature regime for up to a week at a time including pollutant transport patterns that radically depart from the usual. From observational analyses, researchers have identified three factors that might have a strong influence on the formation of the eddy. These are topographic relief, strong northerly airflow and diurnal surface heating. Under this Research in Undergraduate Institutions award, the Principal investigator will use a numerical model to simulate the Catalina Eddy for the purpose of better understanding of the influence of these three factors.